Sensor-Based Incremental Planning For Multifingered Manipulators

This is the first of a three year continuing award. There search focuses on planning of multifingered robotic grasping of objects in situations where there is incomplete information. The grasping behavior will be continuously and incremetally refined based on sensed information during task execution and reasoningabout object and manipulator geometry. The grasping operation will combine reflexive behavior based on simple stimulus-action rules and local information only, with reactive behavior which provides robust capabilities for dealing with uncertainties and minimizes the amount of preplanning resourcefully without a priori models of the environment or the task. Such systems will be needed for autonomous robotic operation in unstructured, unfamiliar, or unpredictably changing situations such as space, underwater, or environmental operations, and may also be easier and more economical to deploy in more structured environments such as some manufacturing processes.